Mathematical Sciences: Topics in Mathematical Logic

Solovay plans to investigate various questions in mathematical logic, including questions concerning models of inductive inference, exotic Boolean algebras, and the consistency of Quine's system of set-theory, "New Foundations." In addition, work is planned on the following topics: reconstructing Godel's proof of the independence of the axiom of choice; cutting down his backlog of unpublished papers; learning more about neural nets and neurobiology; and learning more about random graphs with hopes that it has applications to complexity theory.